Acquisition of new type of ion microprobe - the nanosims- for geochemical and astrophysical investigation of terrestrial and extraterrestrial materials

9871070
Walker

This award provides partial funding for the acquisition of a new type of ion microprobe analysis system that will be installed and operated in the McDonnell Center for space Sciences at Washington University in St. Louis. The University and the National Aeronautics and Space Agency are committed to providing the remaining funds necessary for the acquisition. The new ion microprobe is based on a novel ion optics design developed in France that permits very fine focusing of the primary incident ion beam to less than a micron diameter (for excellent spatial resolution of analysis) in combination with high secondary ion yields for unprecedented mass resolution in microanalysis. Initial applications of the new facility will focus on the study of isotopic and elemental compositions in pre-solar and other fine-grained exterrestrial materials, leading to better understanding of cosmochemistry, the evolution of galaxies, stars and planets.
***